Development of a Basic Physics for Materials Characteriza- tion Laboratory

To set up a group of related laboratories designed to demonstrate basic physical principles and to show it is currently used in materials characterization. The experiments are (1) Rutherford backscattering, (2) nuclear reaction analysis and neutron activation analysis, (3) particle induces x-ray emission and x-ray fluorescence, and (4) particle channeling. These funds will allow students to enter a variety of fields of graduate study (including nuclear physics, atomic physics, condensed matter physics) and to enter directly into industrial or governmental laboratories where these techniques are rapidly being adopted for materials characterization. Computerized data taking and analysis will be emphasized.